Student Travel Support for the Association for Computing Machinery (ACM) Symposium on Software Defined Networking Research (SOSR) 2017 Conference

The Symposium on SDN Research (SOSR) is a major forum for presentations and discussions of novel networking technologies that will shape the future of SDN. This year SOSR is once again co-located with the Open Networking Summit (ONS) and with attendees from each event having access to selected sessions in the other event. The Symposium will enable interaction among the academic and industrial attendees of these two events focused on research and development of SDN. This proposal requests funding to assist ten United States-based students to attend this conference. SOSR emphasizes interactions between networking researchers and industry practitioners at an international level, and attending SOSR presents an excellent opportunity for U.S. students to connect with the thriving international research community. New in this year, SOSR 2017 will include a demos and posters session, allowing students to present and obtain feedback on their work-in-progress. The support requested in this proposal will enable students to attend the main conference, the demos and posters sessions at SOSR 2017. These students would otherwise be unable to attend the conference.

Intellectual Merit: This award provides travel support for US-based students to attend SOSR 2017 and the associated sessions. This program will expose students to new ideas and allow them to interact with other researchers. In particular, through exposure to a premier technical meeting in software-defined networking, co-located with the Open Networking Summit (ONS) and with attendees from one event having access to selected sessions in the other event. Students will have the opportunity to observe high-quality presentations and interact with senior researchers in the field, both in the main conference, the demos and posters, and the ONS sessions.

Broader Impact: This project integrates research and education of students through exposure to a premier technical meeting in computer networks and communications. Students will have the opportunity to observe high-quality presentations and interact with senior researchers in the field, both in the main conference and the associated sessions, and their inclusion will have a positive impact on the quality of their research. Women and other minorities will be especially encouraged to participate and are given selection priority. The SOSR conference has developed into a top-tier international conference, presenting a tremendous opportunity to students to expand their breadth of ideas, research skills, and technical perspective. This conference will prepare students to take their place as the backbone of the next generation of computer networks and communications researchers.